Undergraduate Supplement to CISE Research Instrumentation MIMD Parallel Processor

A twenty-node multiprocessor system (16-node hypercube + 4-node hypercube) will be provided for researchers at the University of South Florida for research in the Department of Computer Science and Engineering. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in parallel algorithms for vision, and parallel algorithms for reasoning.